Microwave Scattering and the Dynamics of Short Wind Waves: A Wavetank Study

9402852 Plant The adequacy and limitations of the Bragg scattering/composite surface theory of microwave backscatter from rough surfaces for understanding the dynamics of centimeter scale wind-generated waves will be determined by analyzing the results of a extensive laboratory experiment.